Making Science Programs On Public Television Accessible To Blind and Visually Impaired Viewers

WGBH Educational Foundation seeks support from NSF to add a Science Unit to its Descriptive Video Service. In their original proposal they cited three objectives: to produce universally available narrative audio descriptions of public television science program for visually impaired Americans, to disseminate information regarding the availability of the programs, and to raise funds for additional program descriptions. A modest evaluation plan was included. With the funds requested here, they will describe NOVA, NATURE, and THE NEW EXPLORERS. Other programs will be added in the subsequent years. This request is for the support of the first year of a three-year projection.